Investigation of the Nature and Origin of Seafloor Geologic Structure Surrounding North America - The Geologic Map of North America

The investigator will complete the interpretation and mapping of the seafloor geology of areas surrounding North America. The study will synthesize submarine geological and geophysical data collected over several decades. The remaining two quadrants off the western North American coast will be completed.